Industry/University Cooperative Research Center for Particulate Materials

The Particulate Materials Center (PMC), a National Science Foundation I/UCRC , is a focal point for interdisciplinary research, education, and technology transfer of particulate materials processing. Particulate materials processing and manufacture is of vital importance to the advanced materials, ceramics, chemical, cosmetic, electronics, image processing, mineral processing, and pharmaceutical industries. Continual technological developments and improved scientific understanding are required to enhance product quality, to reduce process costs and time, and to minimize pollution during manufacture. Powder formation, powder handling and fabrication, particle dispersion, and sintering of shaped products from powders are disciplines of central interest to PMC members.